Bloomington Geometry Workshop

Abstract

Award: DMS-0607956
Principal Investigator: Christopher G. Connell,
David M. Fisher, Matthias Weber

The Bloomington Geometry Workshop brings together leading
geometers to discuss and disseminate recent advances in geometry
and related fields. This year's list of speakers includes Denis
Auroux, Manfred Einseidler, Nikolai Ivanov, Gregory Margulis and
Juan Souto. These speakers will inform participants of work in
symplectic geometry, dynamics on homogeneous spaces and
applications to number theory, rigidity theory, hyperbolic
geometry and Teichmuller theory.

The purpose of the Workshop is to help foster cooperation and
collaboration among researchers in the midwest region as well as
help educate graduate students and young researchers about the
latest developments in geometry. Most of the funding will be used
to support the travel of graduate students and recent
PhD's. These young researchers will come away from the workshop
better prepared to take part in current research in geometry, a
field of basic research that is important to computer graphics,
quantum physics, material science, and many other scientific
disciplines.

For more information, see the conference Web site at
http://www.math.indiana.edu/programs/bgw/2006/.